CAREER: Practical Language-Based End-to-End Security

Increasingly, confidential information is placed on network-accessible
computers by organizations and individuals, yet neither the current
practice nor theories of computer security are adequate to ensure that
this information remains confidential. The lack of sound mechanisms
for protecting confidential information, especially in the presence of
malicious code or hosts, creates serious privacy, liability, and even
national security concerns.

This research explores new security mechanisms that provide stronger,
end-to-end assurance that data remains confidential. The focus is on
three important areas where existing models are inadequate and existing
enforcement methods are impractical. First, confidentiality must
be protected even in systems that include both mutually distrusting
principals and untrusted, possibly malicious hosts. Second, concurrent
and distributed systems create new challenges for information flow
control. Third, new techniques are needed for verifying that binary
code, including legacy code, protects confidential information.

The goal of this work is fast, practical, end-to-end assurance of
confidentiality for decentralized systems with mutual distrust. This
kind of assurance promises to significantly strengthen the security of
the emerging computing infrastructure.